Measurement of Cloud Condensation Nuclei During ACE-2

9619488 Shaw This project is part of the North Atlantic Regional Aerosol Characterization Experiment (ACE-2) which will be conducted in June and July, 1997, over the subtropical Northeastern Atlantic Ocean as an international collaborative effort. The main objectives of ACE-2 are to study the properties of atmospheric aerosols relevant to radiative forcing and climate using aircraft, ship-board, and ground-based measurements. In this project, measurements of the supersaturation spectrum of Cloud Condensation Nuclei (CCN) will be performed at a surface site at Sagres, Portugal. A newly developed instrument, the cloud condensation nuclei remover, will be deployed. The data obtained by this and other research groups will allow a detailed analysis of aerosol properties and sources.